Quantum Control and Quantum Coherent Dynamics of Spinor Wavepackets in Optical Lattices

This research program focuses on quantum control of atomic motion in optical lattices, extended arrays of micron-sized traps formed by the AC Stark shift in laser standing waves. Research will concentrate on two related problems: (1) the study of quantum dynamics and the quantum to classical transition for atomic spinor wavepackets in magneto-optical double wells and (II) quantum feedback control in this same system, with the objective of creating specific quantum states or enforcing a desired quantum evolution.